Towards a New Formulation of the Theory of Spontaneous and Stimulated Emission

Professor Taylor proposes a new theory that challenges currently held ideas in accounting for the minimum attainable spectral linewidth of single mode semiconductor diode lasers. He points out that the presently accepted theory of Henry (Bell Labs) - first proposed in 1982, and since elaborated on by others - has certain implications which violate the principle of energy conservation. Professor Taylor's hypothesis treats spontaneous and stimulated emission processes in a way consistent with energy conservation and provides for the problem of random phase fluctuations in the photon field.